Conference: NSF Student Travel Grant for 2026 Digital Forensics Research Conference (DFRWS)

This project broadens undergraduate and graduate student participation from U.S. universities at the Digital Forensic Research Conference (DFRWS), a premier international venue advancing digital forensics research and practice across academia, industry, and government. The project provides competitive travel support for undergraduate and graduate students across U.S. institutions to ensure student access to cutting-edge security science and professional research communities.